U.S.-France Cooperative Research: Logic-Based Specification and Verification Tools for Concurrent Languages

9815645
Miller

This three-year award for US-France cooperative research in computer programming languages involves Dale Miller and Catuscia Palamidessi of Pennsylvania State University and Francois Fages and Marible Fernandez of the Ecole Normale Superieure in Paris, France. Their collaboration addresses the foundational aspects of concurrent computation from the direction of linear logic programming, proof nets, and concurrent constraint programming. They will apply proof theory and linear logic to these different directions. The US investigators bring to this collaboration expertise in linear logic and concurrency theory. This is complemented by the French investigators' expertise in constraints and interaction nets. The collaboration will advance linear logic and proof theory and their application to concurrent programming.